NSF-Europe Materials Collaboration: Rapid Generation of Inherently Conductive Polymer Micro and Nanostructures

Intellectual Merit:
Here we propose to use our solid-state oxidative crosslinking process to rapidly micro pattern
inherently conductive polymer lines and to prepare inherently conductive polymer nanostructures.
Since our solid-state oxidative process involves the use of a processible precursor polymer, we
can fabricate polymeric structures from the macro to the nanoscale. Furthermore, the
polymerization process we utilize, namely ring-opening methathesis polymerization (ROMP) is
living with the capability of the facile preparation of random copolymers. Therefore, we can vary
the amount of conductive polymer ultimately ending up in our solid-state crosslinked inherently
conductive polymers allowing for us to attain a given optical density and conductivity. We have
already found that electrochromic devices prepared from our nanostructured polymers have
tremendous potential for achieving submillisecond response speeds. With the ability to prepare
macro, micro, and nano lines of inherently conductive polymer, we will be able to study solid-state
oxidative crosslinking kinetics (crosslinking propagation rates), and ion diffusion upon redox
switching of the polymers across all size scales. Through ion diffusion studies with our Spanish
collaborator, Professor Toribio Otero, Director of the Center for Electrochemistry and Smart
Materials (CEMI) at the Polytechnic University of Cartagena, we will understand the switching
capabilities of our crosslinked inherently conductive polymers and learn strategies to optimize the
switching speeds and to test their potential in application areas that Otero is an expert in, namely
membranes and artificial muscles (actuators).

Broader Impacts:
Due to the high processibility of our precursor polymers, we have the ability to fabricate inherently
conductive polymers via our novel process of solid-state oxidative crosslinking into a variety of
macro, micro, and nanostructures potentially by numerous techniques. This work could ultimately
lead to a procedure by which to mass produce flexible displays, wearable displays, nanodevices,
polarizing electrochromic lenses and windows, fast switching electrochromics for laser eye
protection, and potentially ion selective membranes and actuators. With the ability to precisely
load a given amount of conductive polymer within an insulating polymer through our solid-state
crosslinking process, we could potentially have a way to put the material at the percolation
threshold in order to generate micron and nanosized on/off switches. Collaborative efforts with a
world expert, namely Professor Toribio Otero, on ion diffusion studies of these conductive
polymers could allow for us to design and further optimize the next generation of inherently
conductive polymer devices with extraordinarily rapid response times for charge/discharge cycles.
In addition to laser protection electrochromic goggles and polarizing filters, this work could lead to
a new generation of polymeric capacitors and batteries.

Collaboration:
Interchange of students with our Spanish collaborators is proposed. Two students from the
Sotzing group will spend 3 months/yr in Spain learning about the study of ion diffusion and
simulations while also involved in their research. Two students from Spain will spend 3 months/yr
in the U.S. studying nano and micro fabrication of inherently conductive polymers and the study
of crosslinking kinetics while also carrying out their expertise of research. Within the collaboration,
all of the researchers involved in the collaboration will be involved in a two week intensive
collaborative effort in Spain for the first year and a two week concerted effort in the U.S.A. for the
second year. During these two weeks, we will hold biweekly presentations and intensive training
on instrumentation in the respective laboratories, and short courses in both Professor.s areas of
expertise.

Diversity:
This collaboration between the U.S. and Spain will provide an excellent opportunity for Mexican-
American and Puerto Rican-American underrepresented minorities, considering these type
students would be fluent in both languages of this collaboration.